Ammonia Transport by Gram-Negative Bacteria

Ammonia is the most readily assimilated nitrogen source for bacterial growth. Before adapting to utilization of dinitrogen or other sources of fixed nitrogen, both itrogen fixing and heterotrophic microorganisms avidly scavenge the environment for ammonia. Under these conditions, the active, concentrative uptake of ammonium ion is required for the utilization of ammonia and for repression of nitrogen fixation. This project will study the mechanism and metabolic regulation of ammonium ion transport in Escherichia coli, an enteric bacterium, and Azotobacter vinelandii, a free-living, aerobic, nitrogen-fixing bacterium. The project involves both biochemical and molecular genetic approaches to four primary objectives: 1. To test the hypothesis that active NH4+ transport is catalyzed by an NH4+/K+ antiporter which utilizes high-energy phosphate. 2. To select mutants of E. coli with defects in the structural gene for the ammonium transporter. 3. To deduce the primary amino acid sequence of the ammonium transporter from the DNA sequence of the cloned gene and to identify homologus sequences in the genome of nitrogen-fixing bacteria. 4. To describe the mechanism of feedback inhibition of ammonium transport by glutamine. This information will be useful in the genetic design of nitrogren-fixing bacteria which more readily provide ammonia for soil enrichment. //